SOUTH CAROLINA EPSCoR PROGRAM: PHASE II

Title: South Carolina EPSCoR Program: Phase II Abstract Narrative: This South Carolina EPSCoR two-year continuation award is to bring the State of South Carolina up to active status with the thirteen current EPSCoR States so that all seventeen States will compete on an equal basis for Advanced Development Grants in 1991-92. The South Carolina proposal embraces two research components: 1) Molecular Genetics, Genome Mapping, and Gene Manipulation, and 2) Program in Molecular and Population Biology. The total award is for $895,000 and presents a non-federal "match" of $1,073,000. The proposal was merit reviewed; site visited and recommended for funding subject to some modifications which were incorporated in the award submission. The proposal is recommended for funding.